SBIR Phase I: Half-Wheeled Multi-Terrain Amphibious Vehicle

9560678 Kwan This Small Business Innovation Research (SBIR) Phase I project addresses a novel concept in amphibious vehicles. The vehicle would drive on normal roads at customary speeds and yet provide off-road traction equal to that of tracked vehicles. It would utilize a series of co-axial half wheels in tandem, adjusted and synchronized to maintain road contact at constant height above ground and thus maintain smooth vehicular movement at speed. When operating in water, the half wheels provide efficient propulsion, with no wheel adjustment required in landing on a beach. Phase I will conduct feasibility tests with a powered model. Commercial applications are potentially in use as amphibious vehicles for recreational and rescue purposes. It may also find use at farm and construction sites while affording convenient travel on conventional raods at normal speeds.